Resonance and Electronically Non-Adiabatic Effects in State-To-State Reaction Dynamics Using Massively Parallel Computers

In this project Professor Kuppermann of the California Institute of Technology is being supported by the Theoretical and Computational Chemistry Program of the Chemistry Division. The project involves the study of electronic non-adiabatic effects in state-to-state chemical reaction dynamics. The primary reaction used is the hydrogen exchange reaction between H + H2 and various isotopic variants. Other reactions considered include the reaction of F + H2, as well as O + H2. Various ways of treating and incorporating multiple electronic surfaces and non-adiabatic effects will be investigated. Considerable use is being made of massively parallel supercomputers. Special attention is being placed on the role of the `geometric phase` in influencing the reaction probabilities for such reactions. Elementary bimolecular chemical reactions are the basic steps of complex technologically important chemical systems, such as combustion processes, atmospheric chemistry, chemical lasers, and plasma reactors. These systems may involve many steps whose reagents are very frequently short-lived and in many instances cannot be isolated experimentally. Studying their cross sections and rates theoretically constitutes in such cases the best, if not the only, available approach. Such studies also elucidate their molecular level details and lead to a fundamental understanding of how they occur. The theoretical description of very simple gas-phase chemical reactions such as those between a hydrogen atom and a hydrogen molecule, and oxygen atom and hydrogen molecule are being advanced in this computational study which makes use of massively parallel computers.